Environmental Science Laboratories Improvement Project

The Department of Science and Mathematics is acquiring a high- pressure liquid chromatograph and integrator, a filter-weighing analytical balance, a solvent filtration system with pump, and three stereo microscopes. All of these are being used in an integrated curriculum which will lead to a new Environmental Sciences degree. Skills being developed from the use of this equipment include environmental monitoring as well as chemical analysis of the resulting air, water and soil samples. Quantitative skills for separating and chemically analyzing trace components, as well as field sampling and evaluation of samples in ecological and microbiological investigations, are being emphasized in the curriculum.